Collaborative Research: Aerosol Acidity and Multiphase Chemical Processes in the New England Coastal Atmosphere

This work is a collaborative effort to study the transformation and removal of ozone and fine particles in the air due to multiphase atmospheric chemistry related to aerosol acidity. The chemical measurements made will augment the planned 'core' measurements obtaining during the Atmospheric Investigation, Regional Modeling, Analysis and Prediction (AIRMAP) program field intensive scheduled for July and August 2002. The objective of these additional measurements is to assess the significance of pH-dependent, gas-particle interactions with respect to the cycling of odd nitrogen, sulfur and other chemical species in the Gulf of Maine boundary layer. This work contributes to interagency collaboration in aerosol science between NSF and NOAA.